Mathematical Sciences: A Numerical Study of Propagation of Singularities for Semilinear Hyperbolic Systems

The principal investigator will investigate the propagation of singularities for semilinear strictly hyperbolic systems with piecewise smooth initial data. This has applications in computatonal aerodynamics. Computational fluid dynamics can give very detailed information about complex physical phenomena. The rate of convergence of numerical schemes is useful in determining how accurate the information is.